CRI: II-New: Mobile Millimeter-Wave MIMO Network Based on CMU Chipscale Beamformers

Current "4G" wireless networks will not be able to support the projected mobile internet traffic, which is projected to grow to 66,000 petabytes (PB) per month in 2022, up from 94 PB/month in 2010 - a growth rate of 72% per year. The key to meeting such demand lies in: (1) the exploitation of new millimeter-wave (mmWave) spectrum above 30 Gigahertz (GHz), and (2) the development of new hardware and algorithms that enable mmWave communication. However, mmWave communication networks are in their infancy, with emerging 5G networks expected to support first generation concepts. Researchers are already looking beyond 5G, and accordingly, there is intense ongoing research in developing fundamental technologies and algorithms for future mmWave networks. Unfortunately, experimental validation and experiment-driven discovery has been largely lacking due to the unavailability of hardware technologies, compounded by high costs that can be supported only by large companies. The proposed project seeks to build new institutional infrastructure that can enable advanced wireless networking experimentation in the mmWave frequency bands. The resulting testbed will provide experimentation tools and seed research for the hardware, physical and network communication communities, and for systems researchers who focus on localization, autonomous driving, indoor navigation, assistive devices for the visually impaired etc. This project will offer opportunities for undergraduate and graduate education, both during the development of the infrastructure, and during its actual use. In addition, students will develop skills in chip implementation, printed circuit board design and fabrication, laboratory characterization skills, using software-defined radios, field-programmable gate array programming skills, all of which are extremely valuable for a career in the technology industry.

This project aims to develop a first-of-its-kind mmWave multiple-input-multiple-output (MIMO) capable network testbed comprising base stations and mobile user modules spanning indoor and outdoor spaces. Testbed development will be led by a two-investigator team combining expertise in mmWave chip/system design with expertise in cross-layer design and implementation of wireless networks. Since commercial mmWave hardware (especially with advanced features) will not be widely available for the foreseeable future, the proposed infrastructure will leverage the principal investigator's previous NSF-funded research that has resulted in the design and prototype demonstration of advanced mmWave radio chips which feature unprecedented levels of integration, energy-efficiency, reconfigurability and programmability. The proposed project is structured to operationalize a small-scale link/network in the early part of the second year, and scaling up in complexity and network density in the second and third years.